National Sea Grant Fellow

0112325
Baird

An opportunity exists for a Sea Grant Fellow to participate in the development of new
and revised management plans to protect both marine and terrestrial areas in Antarctica
which have been designated for their unique scientific values. Guidelines exist to assist
in the process, but the Fellow would be responsible for developing a finished draft plan.
Additional responsibilities would involve assistance in coordinating with international
organizations involved in the review of the plans to ensure that the concerns of other
Antarctic Treaty parties had been taken into account before the final plans were presented
at an Antarctic Treaty Consultative meeting for approval.